U.S.-Argentina Collaborative Research: Theoretical Studies of Non-Equilibrium Dynamics in Driven Superconducting Circuits

9602924 Jose This U.S.-Argentina award will support collaborative research between Dr. Jorge V. Jose of Northeastern University and Drs. Daniel Dominguez and Christina Wieko at the Centro Atomico Bariloche in Rio Negro, Argentina, to carry on research on nonequilibrium dynamics problems with non-linear interactions. The researchers have chosen as the physical paradigms for study artificially fabricated Josephson junction arrays and high-temperature superconductors driven by external and self-induced electromagnetic fields. They will examine the transport and thermodynamic properties of these systems by considering ever more realistic models that will be tested against experimental findings. This project will unite two top research groups, one from Bariloche Research Center which is considered to be one of the most distinguished Latin American institutions for the study of condensed matter physics. This research will further the development of new devices in the area of mesoscopic electronics. ***